Acquisition of a Low Vacum Scanning Electron Microscopy for a Multidisciplinary Service Facility at SUNY-CESF

An MRI award will support the acquisition of low-vacuum scanning electron microscope wit EDS capabilities for a multidisciplinary microscopy service facility. This facility is the sole provider of scanning electron microscopy services to the entire Syracuse academic community. The microscope will replace an outdated piece of equipment. Research projects which will benefit from access to the instrument encompass the disciplines of chemistry, engineering, and biology. They come from three different institutions. With respect to chemistry, the proposed projects involve polymer membranes and the analysis of atmospheric and water-borne lead particles. With respect to engineering, the projects involve the mechanical behavior of wood, characterization of recycled fibers, strength properties of individual fibers, and fiber-to-fiber bonds in paper. With respect to biology, the projects involve the cochlea and the vestibular sensory epithelia of the auditory system, mechanisms of wood decay, decay identification and prevention, and fungal morphology. The instrument will also be used in training of students from a number of departments and institutions.